Euler Alignment, Nonlinear Conservation Laws and the Pressure-less System

Partial Differential Equations play a pivotal role in a wide range of applications, facilitating the study of many questions in physics, geometry, meteorology, biology, economics, and engineering sciences, to name a few. This project aims to advance the current understanding of fundamental questions that arise in the context of three canonical classes of nonlinear partial differential equations, which model (i) emergent phenomena; (ii) conservation laws; and (iii) the pressure-less early universe model. While these three classes of evolution equations are well-understood in the one-dimensional spatial setting, the questions of existence, regularity and large-time behavior of solutions for the more realistic multi-dimensional models are mostly open. The plan of this project is to develop novel paradigms to address these questions with emphasis on the multi-dimensional setting. This project also involves mentoring graduate students who will be involved in this research.

This project is concerned with the following time-dependent partial differential equations in multiple spatial dimensions. (i) Euler Alignment. The system of Euler Alignment arises as the large crowd dynamics of the Cucker-Smale alignment model. The goal is to study the open question of existence of multidimensional strong solutions, subject to sub-critical initial data, and their large-time behavior with short-range communication kernels. (ii) Nonlinear Conservation Laws. Nonlinear scalar conservation laws admit a regularization effect, where the entropic time evolution of bounded data gains spatial regularity of fractional order s< 1/3. The 1/3 barrier, at least in two or more dimensions, remains an open problem. The project will address this open problem by refining a velocity averaging lemma adapted to deal with one-signed measures and quantify fractional regularity in proper Morrey spaces. (iii) The Pressure-less System. In one-dimension one encounters the inviscid Burgers’ equation. A standard embedding of the system into vanishing pressure is limited to one dimension by the formation of delta-shocks. The goal is to construct vanishing viscosity solutions of the Zeldovich pressure-less system in two or more dimensions. Note that for two or more dimensions, the equations form a non-conservative system. The development of such two-dimensional existence theory is based on spectral dynamics and priori bounds on the spectral gap coupled with compensated compactness arguments.